Acquisition of Gamma-ray Spectrometer System for Undergraduate Nuclear Physics Laboratory

Significant revisions have recently been made in the curriculum of the senior-level modern physics theory course at Weber State to include Nuclear and Particle Physics as a distinct subject area. A corresponding change in the Modern Physics Laboratory course is planned. The Physics Department will acquire an IBM-PC-based multi-channel analyzer system (MCA), a high resolution HPGe gamma-ray detector, and fast timing detectors, with associated electronics components for this nuclear physics lab. This will permit a wide range of nuclear experiments to be carried out in this laboratory that are not currently possible with available equipment. In addition to the laboratory course, the equipment will also make possible student research projects in nuclear and solid state physics. The computer-based MCA will give students an opportunity to work with computer-interfaced scientific equipment which is invaluable to their training as physicists.